Hypocycloidal Pinch (HCP) Device for X-Ray Lithography

The evolution of Very Large Scale Integrated Circuit technology demands innovative and fast submicron lithography which could replicate more densely packed integrated circuits at a high throughput. The proposed Hypocycloidal Pinch (HCP) light source is considered to be an intense x-ray source suitable for submicron and high throughput lithography. This device has a novel geometry which utilizes the plasma dynamics hyocycloidally pinched into the radial direction and eventually resulting a very stable, high energy, and highly dense plasma in its axial center. The emission spectra from this highly compressed and stable plasma composes mainly of a waveband of intense soft x-ray. The size of pinched plasma is so small in diameter that the penumbra effect can be also minimized in the photolithography. This stable and highly compressed plasma guarantees the reproducibility of the soft x-ray emission and its intense emission ensures the fast throughput. The proposed HCP soft x-ray light source is an inexpensive system, so that it is ideal for the small business entities and university laboratories.